Gateway to Engineering

9354816 Riedel This proposal requests support for the development of an innovative, interdisciplinary course called GATEWAY TO ENGINEERING. The course is designed to introduce first-year engineering students to their chosen field in a creative and exciting way. The course will be developed by an interdisciplinary group of 10 engineering faculty, and will be taught by these faculty to pilot groups of first-year students. Integral to the design of the course is an ongoing assessment of its success in achieving its objectives. These objectives include: encouraging students to form a supportive academic community, improving study skills and survival tactics of first-year students, nurturing creativity in design, providing a foundation in engineering science in several areas, involving each student in hands-on laboratory experiences, providing several opportunities for students to design, providing connections between engineering faculty and first-year students, introducing students to the engineering profession in a variety of ways, improving the retention rate of engineering students from the first to the second year, and ensuring that each student makes the choice of engineering on the basis of reliable information and experience. GATEWAY TO ENGINEERING targets a pilot group of first-year engineering students; it involves an interdisciplinary team of engineering faculty; it provides significant engineering science content, hands-on laboratory experience and design opportunities for each student; it enables students to join the engineering academic community by coming to know their peers, their teachers, and some upper division students in engineering; it combines the results of previously-successful first-year programs with innovative pedagogical techniques in a new and creative way; and it gives the first-year students a clear understanding of both the study and the practice of engineering.